Education Research Project: An Empirical Investigation of the Success Factors Impacting African American Students in Engineering and Technology at Historically Black Universities

The HBCU-UP Education Research Project: An Empirical Investigation of the Success Factors Impacting African American Students in Engineering and Technology at HBCUs aims to identify factors that most significantly contribute to the success of academically gifted African American students in STEM disciplines enrolled at HBCUs. The study will apply a mixed methods approach utilizing qualitative and quantitative measures. The investigators will utilize focus groups, interviews, virtual chats, as well as web based instruments to gather information.

This project hopes to better understand how to structure the collegiate experience, and has the potential of impacting not only HBCUs, but also the wider academic community.